U.S.-Brazil/Canada Dissertation Enhancement: Mating System Evolution in Muscovy Ducks

Under this US-Brazil-Canada dissertation enhancement research award, Sarah M. Stai, under the sponsorship of William A. Searcy of the University of Miami, will work with Regina H. F. Macedo of the University of Brasilia in Brazil and Frank Rohwer at the Delta Waterfowl and Wetlands Research Station in Portage la Prairie in Canada. They will study the promiscuity and sperm competition in Muscovy ducks. This project has three objectives: 1) to characterize male-female associative patterns through behavioral observations and to estimate the number of mates through DNA analysis; 2) to explore why this species is an exception to the rule of monogamy in waterfowl through cost-benefit analysis, a comparative approach, and hypothesis testing; and 3) to test the passive sperm loss model, a proposed mechanism for sperm competition.

The elucidation of the adaptive significance of promiscuity and an ability to predict the outcome of sperm competition will lead to a better understanding of Muscovy duck reproductive strategies and of mating system evolution in waterfowl. The field research will be done in Brazil and the captive research will be done in Canada. This project will provide benefits to research, teaching, and wildlife management and conservation.